Orthogonal Polynomials, Special Functions, and Applications

This proposal is to cover travel expenses for American mathematicians to attend the international
conference "Orthogonal polynomials and special functions and applications IX".
Five of the 17 invited speakers are from the United States and the plan is to support several
junior researchers and graduate students to attend and speak at the meeting.